Applying Architectural Research to Practice, to be held May, 1991

This project will convene a specialized group of architects and engineers to discuss; innovative experiences in building materials and processes, automation in construction, innovations in safety and habitability, new environmental systems, and research needs for the future. The proceedings will be distributed throughout the architectural and engineering communities.